Interactive Content-Based Image Database Management

Tools and techniques for content-based organization and retrieval of electronic images from large databases will provide a greatly needed relief from the ever growing among of visual information gathered by industries and individuals alike. Current applications of image information systems do not provide the functionality necessary to manage image data. This requires mechanisms for determining semantic content of the data at storage time, and representation in effective manner for retrieval. We propose to develop an interactive content-based image archiving system in which domain-specific knowledge is explicitly represented separate from domain-independent knowledge. This system will be used for creating image databases in different applications (e.g. animal specimens, art, flora, maps, industrial parts, medical image, experimental results, etc.). We propose to employ a new layered data model which allows complex structural representations. This model provides the user with the different levels of interaction, and with the tools for generating semantic entities from image portions, and for defining relation between entities as higher level constructs. The development of such a tool will lead to a significant improvement in managing visual electronic information in particular and multi media information in general. In the first phase of our research, we will identify requirements of content-based image databases, study the suitability of current relational and object oriented databases, and study a tasks domain, face database, for implementation.//